CAREER: Semiparametric and Non-Parametric Models for Correlated Data

CAREER: Semiparametric and nonparametric models for correlated data

Abstract:

This research project is aimed at developing statistical theory and
practical methodology for complex high dimensional correlated data
where the full parametric likelihood function of the model is difficult
to specify or intractable, and partial data information is not accurate
or is missing. The PI and her collaborators will develop
efficient and robust estimation procedures by incorporating
correlation structures into the models where high dimensional
nuisance parameters are present, and develop inference functions
for hypothesis testing with low computational intensity.
Part of research goals for the 5-year plan are:
to provide an explicit maximum number of contaminated
clusters allowed to maintain the consistency of the estimator using
quadratic inference functions; to develop unbiased and efficient
estimating functions if missing responses are missing at random,
and inference functions for testing the model assumption;
to develop an efficient esimator using a nonparametric regression
spline with relatively low demand on computation, and introduce a
goodness-of-fit test with a chi-squared property for testing whether
coefficients in nonparametric regression are time-varying or time
invariant; and, to develop semi-nonparametric models for cell cycle
microarray data to incorporate both temporal correlation within genes
and correlation between biologically related genes.

This research will have significant impact and many applications in
biomedical research, econometrics, environmental studies, oceanography,
social science and public health where correlated data arise
often. The outlined research projects help to tackle fundamental
questions in statistical science and will stimulate interest from a
large group of scientists. It also makes connections between
theory and methods developed in econometrics, statistics and
biostatistics. The proposed research will benefit biomedical research
to help combat life threatening diseases such as AIDS and cancer,
and will make contributions to identifying cell cycle regulated genes
more accurately. It will integrate current states of knowledge of
proposed research areas substantially into educational activities
through development of
new courses on nonparametric methods and microarray data analysis.
It will advance undergraduate and graduate students' learning and
training in semiparametric and nonparametric methods. Furthermore,
it will broaden opportunities and enable the
participation of all citizens from various disciplines, including
underrepresented minorities and international partnerships.